Particle Physics Beyond the Standard Model

This award supports ideas going beyond the standard model of particle physics and cosmology, with three primary goals in mind. The first prong is to develop new theoretical frameworks and mechanisms in order to address the puzzles of the Standard Model, such as the presence of various hierarchies among the measured values of its parameters and the lack of a suitable candidate for the dark matter of the universe. The second direction to determine how to test such extensions of the Standard Model at high-energy colliders such as the Large Hadron Collider, via lower-energy precision measurements and in astrophysical/cosmological observations. Finally, the aim is to train students and postdocs in conducting particle physics research. The PI will also communicate the excitement of doing physics in general to the community-at-large. The fundamental laws of nature lie at the root of all the natural sciences, and therefore, the cutting-edge research in this project and the broad dissemination of its findings will benefit the national interest and our modern civilization.

More technically, the principal investigator (PI) will study new aspects of compositeness of the Standard Model (SM) particles, including its fusion with supersymmetry (SUSY), which relates elementary particles of different spins to each other. In particular, the PI will focus on the ability of such a framework to address the electroweak and flavor hierarchy puzzles of the SM. The PI will also explore several directions in particle astrophysics/cosmology associated with models of dark matter (DM): these include weakly interacting massive particles (WIMP’s) originating in the SUSY-compositeness framework mentioned above and non-particle DM candidates such as primordial black holes (PBH’s). The PI will study direct and indirect detection of these forms of DM in experiments, for example, at the Cherenkov Telescope Array (CTA) for WIMP’s and subtle features of Hawking radiation from PBH’s at observatories called AMEGO/e-ASTROGAM.